Theme Curriculum: An Integrated Curriculum Development Project In Support of Advanced Technology Education

PI: David Sinclair Proposal: DUE-9553717 Institution: Los Rios Community FY1995 - $50,000 College System Advanced Technological Ed City, State, Zip: Sacramento, CA 95825 Title: Theme Curriculum: An Integrated Curriculum Development Project This is a planning project to pilot the use of macro, industry- based problems to generate themes and sub-themes for the mathematics, science and engineering technology courses in advanced technology education programs. The premise is that this will not only make instruction take on a real-world character, but also serve to show the interconnections of the various disciplines as well.